Resurgent Bering Glacier: Ice-penetrating Radar in Analysis of Changes Relative to Pre-surge Baseline Data in the Eastern Sector of the Piedmont Lobe

9319872 Fleischer This award is for support of a Small Grant for Exploratory Research (SGER) to document and analyze a surge, which is in progress, on the Bering Glacier in Alaska. Surging is defined as periodic, very rapid movements of large quantities of ice within a glacier, alternating with much longer periods of near stagnation. The Bering Glacier is the longest (191 kilometers) and largest (5,173.5 square kilometers) glacier in North America. This work is part of an on-going program of the Bering Glacier Research Group (BERG) and will involve state-of-the-art, continuous-recording, ice penetrating radar measurements of ice thickness. The results of this work should help in the understanding of the role of subglacial water in the surge mechanism. ***